NSF/CBMS Regional Conference in the Mathematical Sciences: Longitudinal Data Analysis; June 3-8, 1997; Columbia, MO

Professor Nan Laird of Harvard University will be the principal speaker at a conference on longitudinal data analysis. Prof. Laird will deliver a series of lectures and prepare a monograph based on these lectures. Because of its wide appeal and importance in applications, longitudinal data analysis has become an intense area of statistical research. Prof. Laird has been on the forefront of development since the early 1980's, both in methodology and application. In addition, a number of other noted researchers in the field will be invited to participate. The conference is tentatively scheduled to be held at the University of Missouri-Columbia, June 3-8.